International Heliophysical Year (IHY) Chapman Conference on Universal Heliophysical Processes; Savannah, Georgia; November 10-14, 2008

The Principal Investigator will provide travel support for U.S. students and British scientists to participate in a conference on universal heliophysical processes, to be held in October 2008 as an activity under the auspices of the International Heliophysical Year.

The conference program will be organized around five categories of universal plasma processes that are rigorously outlined in a report by the National Research Council, entitled "Plasma Physics of the Local Cosmos." The program will feature extended discussions led by invited moderators following a limited number of invited papers. This project has been approved as a Chapman Conference by the American Geophysical Union (AGU), and AGU staff will handle all meeting arrangements, registration, and advertising.

Enabling the attendance of key conference participants will facilitate the presentation of a comprehensive program on a topic that lies at the forefront of research in space physics. This project will help develop strategies for studying universal plasma processes and enhance students' careers.